CAREER: The layering problem in graphical user-interface design

A two-pronged approach is proposed to add rigor to the current
state of software-engineering knowledge. The research component
focuses on the technical design of highly graphical interactive
systems, specifically the design decisions required to separate
a graphical user interface from an underlying computation.
Currently, the nature of design knowledge in this area is
heuristic and anecdotal. The research will clarify and extend
such knowledge to produce a deductive, synthetic theory of
composition in graphical interactive systems design.
Being synthetic, this theory creates new knowledge, specifically
the detailed modular design of separate, but composable,
user-interface and functional-core components. This knowledge
is synthesized from existing knowledge, specifically an
object-oriented model of the objects with which a user will
interact. Being deductive, this theory will be rigorous
and repeatable in sharp contrast with its technology-laden
predecessors. The theory exploits and generalizes prior
results in model-based user-interface generation and
hierarchical components. The education component exploits
and facilitates rigorous software-engineering knowledge to
enable precise measurement and improvement of learning in
undergraduate software-engineering courses. The
approach is founded on the use of cognitive objectives,
which have proved useful for course improvement
and curriculum design in other engineering disciplines.